Interior-Point Methods for Conic Optimization

his project aims to study interior-point methods for conic
programming problems. Improvements will be considered
to allow these methods to easily detect when
such problems are infeasible or unbounded, as often happens when
new models are developed. The most efficient interior-point methods
in most cases are primal-dual methods, but in certain cases, dual
methods are expected to be faster as long as a suitable barrier function
can be found: the project will study ways to construct such
efficient barrier functions. These two themes can be studied in a
unified way by considering a general conic problem
and a related problem associated with unboundedness.
Several topics will be investigated from this viewpoint:
the relationship between optimal solutions, central paths,
and Newton steps for the two formulations,
and the development of so-called self-concordant barrier
functions for faces and recession cones of convex sets for
which such barriers are known.

This project will continue investigations into interior-point
methods for conic optimization problems. These methods have proved the
most efficient for solving truly large-scale linear programming problems,
as arise in resource allocation problems in industry, government, and the
military. More recently, they have been extended to a range of
nonlinear problems, in particular to second-order cone and
semidefinite programming, which have applications in structural
optimization, antenna array design, filter design,
and portfolio optimization, and in obtaining tight
bounds for hard combinatorial optimization problems.
The project will extend the capabilities of these methods to
detect when such problems have been poorly formulated
so that optimal solutions do not exist. Improved methods
for very large-scale problems will be investigated.
Advances will be tested in the software package SDPT3 developed in
a previous NSF project with two former graduate students, and
available to other users over the internet. Improvements
in the code will be made available to practitioners and other code
developers. Graduate students will be trained to become experts in
the modelling and computational power of conic programming.